EAGER: CDS&E: An Open-Source Software Package for Assessing and Controlling Photocatalytic Reactions

Photocatalysis is the process by which sunlight is captured and used to provide energy for chemical reactions accelerated by catalytic materials. A good photocatalytic system is one which absorbs light efficiently, and also efficiently uses the photo-generated electrons to promote catalytic reactions. The interaction between light and chemical/material systems enables numerous photocatalytic applications, all of which contribute to renewable energy that can be used for applications as diverse as solar fuel generation, environmental remediation, and chemical manufacturing. The capability to fully harness these photocatalytic systems has tremendous potential to grow as we further our understanding of the light-initiated processes that occur in these systems. The physics and chemistry underlying photocatalytic processes are extremely complicated. Trial-and-error approaches to identifying new light-harvesting and photocatalytic materials have been aided in recent years by the development of computational techniques to calculate and understand the efficiency of photocatalytic processes using predictive quantum mechanical techniques. This project will further advance those techniques and provide a new, open-source software package for the general catalysis community to assess the efficiency of photocatalytic processes. The availability of fully open-source codes and computational capability encourages both students and researchers worldwide to obtain a deeper understanding of how these approaches and tools can be used to assess photocatalytic efficiencies and hasten the discovery of new photocatalytic materials and operating conditions.

This project will utilize excited-state quantum computational methods to probe the electron dynamics in photocatalytic systems. The excited-state computational approaches used in this project will be coupled with quantum control algorithms to ultimately manipulate photo-induced reaction dynamics. The use of quantum control approaches in photocatalytic systems will have ground-breaking implications across multiple chemical engineering domains by providing a defined way to control reaction dynamics. Specifically, these computational techniques will give rigorous bounds on the wavelengths/frequencies of light that will lead to the desired reaction products. As such, the software tool developed in this EAGER project can serve as both (1) a diagnostic tool to verify that the correct frequency of light is indeed being used as intended in a photocatalysis experiment, as well as (2) a predictive tool for calculating the allowed frequencies of light required to control photocatalytic systems (which may be obtained as data sets obtained from calculation or experiment). Consequently, these computational methods open new avenues of cross-cutting research by establishing a rigorous formalism for manipulating the electron dynamics and understanding the optimal efficiencies that are possible in photocatalytic systems. Finally, the broader impacts of this project will result in an open-source suite of tools that both computational and experimental researchers in the CBET and catalysis communities can easily use for future development. The availability of the fully open-source codes developed in this project encourages researchers worldwide to get a detailed "look under the hood" to obtain a deeper understanding of how these algorithms are numerically incorporated in practice.